Integration Architecture Theory

CCR-9988320
Gamble, Rosanne, F.
University of Tulsa
Integration Architecture Theory

Current software development practices frequently incorporate the reuse of
multiple, existing, and often heterogeneous, components in a single
application. This style of development is thought to increase adaptability
and evolvability of the resulting integrated system. Unfortunately, it also
manifests complex interoperability conflicts among participating components.
Though commercial middleware is being touted as resolving these problems,
often its use results in incomplete solutions, which are neither flexible
nor evolvable. To overcome these problems, it is necessary to capture and
codify the inherent nature of interoperability conflicts in order to
determine and apply appropriate resolution techniques in a principled
manner. Toward this end, this project focuses on developing a theory of
integration founded on formulating software architecture descriptions of
interoperability conflicts, mapping these conflicts to resolution
strategies, and defining a formal composition of these strategies as they
are used in middleware frameworks. The goal of this research is, therefore,
to provide key resources at a foundational level to make principled and
repeatable design decisions that result in more complete and adaptable
integration solutions.